Applications of Basic Science in Industry and Society to Enhance Secondary School Science

This project provides an opportunity for biology and chemistry secondary school teachers to learn and use basic science concepts and theories as employed in industry for developing curriculum units. The project is predicated on the thesis that a curriculum that is developed by teachers from direct experience will induce changes more quickly in new teaching strategies and produce more highly motivated students and a greater understanding of science. Visits to industries, agencies and natural sites are organized to provide direct experience to teachers. These visits will be supplemented by lectures and laboratory work conducted by university staff paired with experienced high school science teachers. Three week summer workshops in chemistry and biology will be held during the summers of 1988 and 1989. The activities will continue with 12 meetings during the academic year. This project will assist in determining if familiarity with equipment and practical applications of theories and concepts in applied settings will build motivation for pursuing science careers.